Determining Active, Nonuniform Dendritic Membrane Properties from Single and Multipoint Potential Readings

Cox
0077728
Information processing along and between nerve cells is
achieved via electrodiffusion along branches and across cell
membranes. The relatively poor axial conductance of the branches
is offset by the myriad of ion channels that perforate the cell
membrane. A nerve cell's salient physical, as opposed to
geometrical, properties are then its axial conductance, its
membrane's capacitance and permeability to one or more ionic
species and the kinetics (rules that govern its open/closed
state) of the underlying channels. The predictive utility of a
mathematical model of course hinges on the accuracy to which
these physical properties are known. Unfortunately, the
experimental determination of each of these quantities is a
formidable task that, in light of recent data suggesting that the
permeabilities vary with position in the dendritic tree, requires
great investment for all but the simplest geometries. The
investigator and his colleagues therefore determine the extent to
which the neuron's physical properties may be inferred from more
readily available indirect measurements. These indirect
measurements are recordings of somatic and distal membrane
potential following a known current stimulus to the soma.
Assuming current seals at the distal ends, these two potential
recordings result in lateral overdetermination of the underlying
degenerate-parabolic system of Hodgkin-Huxley equations. The
investigator and his colleagues deduce from this overdetermined
system a number of well posed problems, and associated algorithms
(based on moment, fixed-point and output least squares methods),
for the recovery of one or more of the neuron's physical
properties. They test these algorithms on data recorded from
pyramidal neurons drawn from the rat's hippocampus.
In order to repair or reproduce the brain one must have a
parts list and a blueprint specifying how the parts are to be
connected. At the coarsest level there are but two types of
parts, nerves (neurons) and nerve glue (glial cells). Though the
human brain has more of each than the Milky Way has stars, it is
not their sheer number but rather a subtle combination of
interconnectedness and variation in electrical properties that
render the brain so powerful. The term `variation' is meant to
express the realization that a neuron is not simply a switch
within a certain brain center or a wire connecting two such
centers, but rather is a tree of wires with electrical properties
varying along each of its branches. It is this local variation in
a neuron's ability to conduct the brain's principal ions that is
thought to be responsible for an individual neuron's ability to
perform tasks reminiscent of rudimentary computers. Given however
the minute size and variegated nature of a single neuron, the
direct experimental determination of its electrical properties
has yet to be achieved. The investigator and his colleagues
therefore pursue the mathematically challenging task of
determining these properties from more readily available, though
indirect, experimental measurements. This process is akin to
determining the size and location of a leak in a transatlantic
telephone cable by comparing what the American said to what the
Englishman heard. The success of their endeavor, coupled with the
increasingly fine resolution of images of neuronal
interconnections, will permit the investigator and his colleagues
to produce models of sufficient veracity to be of use by the
medical community from construction of prosthetic neuronal
circuits to the design and testing of drugs and better
treatments.